Collaborative Research on Work, Class and Mobility in Russia and the United States

This collaborative research (with Hout, SES92-09792) will study work, social class, and social mobility in Russia and the United States. Exact replicate surveys were designed and administered in European Russia and the USA in 1991. The study will analyze these survey data to describe and compare the class structure in the two countries. The study will examine differences between the US and Russia in attitudes toward egalitarianism, the normative link between education, occupation and income, and attitudes toward state versus private control of the economy. The study will provide a much need comparative perspective on social stratification in Russia and the United States and shed new light on the relationship between social structure and stratification processes. The study also will make an important contribution to the study of the relationship between type of political economy and social mobility and equality of opportunity.